Collaborative for Enterprise Transformation and Innovation

The Ohio State University (OSU) has been awarded a planning grant to explore if OSU is able to become a research site partner for the existing Industry/University Cooperative Research Center for Experimental Research and Computer Science. Ohio State University would augment the research agenda in Adaptive Complex Enterprise architectures. This is a new paradigm that creates an information technology infrastructure that tracks processes and modifies itself to meet unexpected needs to facilitate business process.